Flora Novo-Galiciana

WPC 2 _ B P V ` Courier 10cpi | x ? x x x , k x 6 X @ 8 ; X @ Leonard Krishtalka Leonard Krishtalka 2 3 ' 3 ' 3 ' 3 ' 4 < D L ! 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' X 3 ' 3 ' 3 ' 3 ' X X X 3 ' 3 ' 3 ' 3 ' " 4 < D L ! (# # x \ P C X P# McVaugh 9222679 This project will continue the compilation of a descriptive, illustrated flora of western Mexico begun in 1951 and now approximately 50% complete. This area of Mexico is among the most diverse botanically. Seven volumes will be published by 1993 covering the conifers, ferns and monocotylodons and two large groups of dicotylodons; this renewal will treat a number of the remaining dicotylodon groups. Although this flora has been issued in traditional treatments, the project has now begun to capture electronically the relevant collections in Mexican herbaria, so that in future the primary product will be an updatable floral database that will be used by researchers and land managers in various botanical studies and conservation measures. Collaborators include Mexican herbaria, at which the collections will continue to be used to train students. (# ` h p x (# %%% ` h p x (# (# This long term project involves an exhaustive survey and compilation of the flora of western Mexico, which is among the most diverse areas botanically. The project began in 1951 and the descriptive, illustrated flora is projected to be published in 17 volumes. Although this flora has been issued in traditional treatments, the project has now begun to computerize the relevant collections in Mexican herbaria, so that in future the primary product will be an updatable floral database that will be used by researchers and land managers in various botanical studies and conservation measures. At the University of Michigan and at the collaborating Mexican herbaria the project's botanical collections are fundamental resources for training students and for research projects in maintaining and understanding this regional biodiversity. (# ` h p x (# ***